Dissertation Research: Regulation of Species Diversity by Assembly History in Ecological Communities

Spatial scale poses a fundamental problem in understanding species diversity because
mechanisms creating variation in diversity change with scale. Ecological communities are
structured over time as well as patterned across space. Community assembly, how species join
communities over time, not only poses another problem, but also is responsible for observed
spatial patterns. It is not well known how species diversity, community assembly, and spatial
scale relate. This project examines three factors that may determine the degree to which
assembly contributes to diversity at different spatial scales. The number of species in the
regional species pool, the amount of nutrients available to communities, and the number of
disturbance types imposed on communities may all play important roles. Hypotheses addressing
these factors will be developed through computer simulations and tested through laboratory
experiments using bacteria, protists, and rotifers. These approaches, unlike most field studies,
ensure rigorous control over invasion sequence and environmental conditions and monitor
community dynamics over many generations. Overall, this project will provide an assembly-
based model explaining species diversity. Adding temporal dynamics of community assembly to
our perspective will enable ecologists to better understand how and when spatial scale is critical
in assessing the regulation of species diversity.